RUI: Experimental Neutrino Research at Minnesota Duluth

One of the major intellectual achievements of the 20th century was the development of the Standard Model (SM) of particle physics. This model succeeded in classifying all of the elementary particles known at the time into a hierarchy of groups having similar quantum properties. The validity of this model to date was confirmed by the discovery of the Higgs boson at the Large Hadron Collider at CERN. However, the Standard Model as it currently exists leaves open many questions about the universe, including such fundamental questions as to why the Higgs mass has the value it has and why there is no antimatter in the universe. A primary area to search for answers to these and other open questions about the universe, how it came to be and why it is the way it is, is to focus on a study of the properties of neutrinos and to use what we know and can learn about neutrinos as probes of science beyond the Standard Model. Neutrinos are those elementary particles that interact with practically nothing else in the universe. They have no electric charge and were once thought to be massless. Like other elementary particles, they were believed to have an antimatter counterpart, the antineutrino. Moreover, the Standard Model predicted that there were actually three different kinds of neutrinos that were distinguishable through the different interactions that they did undergo whenever there was an interaction. But recent measurements have totally changed our picture of neutrinos. We now know that neutrinos do have a mass and because they do, they can actually change from one type to another. The Intellectual Merit of this work is in the detailed measurements of these changes, along with other current neutrino experiments. These form one of the most promising ways to probe for new physics Beyond the Standard Model (BSM) and are the subject of this investigation. This research will involve the work of undergraduate students at the University of Minnesota, Duluth, an RUI.

Faculty and students working on the NOvA and MINERvA experiments will further the neutrino oscillation measurements and are working toward first astrophysics results. The effort includes enhancing the ability for NOvA electronics to self-detect the neutrino burst from a potential galactic supernova and share that alert with the world-wide supernova detection network. Neutrino interaction measurements continue with existing and incoming data from the MINERvA experiment. Finally, the group is pursuing work toward the next generation experiment, DUNE, including roles in the data acquisition system, design of the near detectors, and the role of neutrino interaction uncertainties in the design sensitivity of the experiment. This grant also supports broader impacts via participation and leadership of the NOvA outreach program, which includes regular summer tours of the Soudan Underground Laboratory and the NOvA detector at the Ash River, MN site.